Collisions of Ions and X-Rays with Atoms, Molecules, and Solids (Physics)

This work incorporates seven accelerator-based atomic physics experiments and several parallel theoretical research projects concerning collisions of high-velocity, highly ionized projectiles with target atoms, molecules, and solids, and of X rays with atoms and molecules. The experimental work is to be carried out by a group of university users at accelerator facilities at ORNL; Stanford (SSRL); BNL (NSLS); Cornell (CHESS); Frankfurt-Darmstadt (GSI); and Caen (GANIL). Specific topics of investigation include: (1) the study of shake-up and shake-off electron correlation effects on recoil ion charge satellites; (2) the study of electron sharing and energy distributions in molecular fragmentation; (3) the study of low energy charge transfer to multiply charged ions; (4) studies of electron capture and loss to projectile-centered continuum states; (5) electron production by 15 to 35 MeV/u heavy ions traversing solids; (6) interference of amplitudes for autoionization of doubly excited He targets; (7) low energy, highly charged recoil ions produced by impact of fast, high charge state projectiles on gas targets; and (8) Auger electrons in coincidence with electron impact ionization of ions.